ITR: Collaborative Research - ASE - (sim+dmc): Image-based Biophysical Modeling: Scalable Registration and Inversion Algorithms and Distributed Computing

A multidisciplinary team of researchers from Argonne National
Laboratory, Carnegie Mellon University, Columbia University,
University of Chicago, Emory University, and University of
Pennsylvania, with collaborators from the Universities of Graz and
Lubek, will initiate a long term research project on image-driven,
inversion-based biophysical modeling. The team includes expertise in
numerical algorithms and scientific computing, fluid and solid
biomechanics, PDE optimization, inverse problems, medical image
analysis and processing, and distributed and grid computing necessary
to tackle this class of problems.

This project aims to create a framework for assimilating multimodal
dynamic medical image data to produce highly-resolved,
physically-realistic, patient-specific biomechanics models. While the
computational and algorithmic aspects of the project are widely
applicable, the target application will be the construction of
patient-specific cardiac biomechanics models from 4D image datasets of
heart motion. Such models are useful for medical diagnosis and
surgical planning. This places a premium on quick turnaround of the
computations, which mean they must be fast, scalable, and capable of
exploiting grid-based computing.

Research will focus on three key areas that undergird the project's
overall goals: registration, inversion, and distributed computing. The
registration research component will create multilevel algorithms to
extract cardiac deformation histories from time-varying medical image
datasets via the solution of sequences of 3D image registration
problems. The inversion research component will develop multilevel
algorithms that use these deformation field histories as virtual
observations to solve inverse problems for cardiac biomechanical
parameters. The distributed computing research component will create
tools for performance prediction and resource scheduling that support
simulations across distributed computational resources.

Dovetailing with the research components, the project will undertake
an educational program designed to communicate the fruits of its work
and of the wider benefits of the integration of the biomedical
sciences, computing sciences, and computational sciences, to a more
general audience of students, disciplinary researchers, and the lay
public. The professional activities of the team members in the
inversion, image registration, grid computing, and computational
science communities will be parlayed to organize workshops and
international meetings, edit volumes, teach summer schools, develop
university and short courses, and engage in outreach activities---as
they have done in the past---but with greater emphasis on the field of
computational biomedicine. The proposed image-based cardiac
biomechanics modeling application will provide an excellent
opportunity to demonstrate the benefits to health and welfare that
advances in optimization-based registration and inversion algorithms
and Grid computing can provide.